Mathematical Physics: Statistical Mechanics and Field Theory (Physics)

This project supports research into fundamental problems in condensed matter physics and high energy physics. The research includes rigorous renormalization group methods in the theory of critical phenomena (self-avoiding walk, percolation, and Coulomb gas). Other research directions include problems in disordered systems related to the Ising model in a random magnetic field and investigations into the phase structure of supersymmetric field theory models and the way the phase structure is constrained by index theorems. This project lies in the general area of 'theoretical' or 'mathematical' of physics with emphases on directed polymers in a random environment, the inverse square Ising model, phase diagrams, and models of quantum field theory important to matter theory and high energy physics.